Workshop: Future Directions in Mobile Computing and Networking Systems; June 1999; Cincinnati, OH

This award supports a two-day interdisciplinary workshop on mobile computing and networking systems. The workshop will be held on June 13-14, 1999 at the University of Cincinnati. Twenty-five to thirty experts are invited to give special lectures, serve on panels and engage in general discussion about future directions in this important research area. The workshop will result in a report on the future directions of mobile computing and networking systems.